Postdoctoral Research Fellowship in Chemistry

Dr. Anthony Curtis Monnig has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Monnig's doctoral degree was from Indiana University under the supervision of Professor Gary M. Hieftje. He intends to continue his research at the University of North Carolina under the sponsorship of Professor James W. Jorgenson. Dr. Monnig's area of postdoctoral research will be ultramicroanalysis of biochemically significant peptides and proteins.